Carbene Migratory Insertions in Complexes of Cyclic Allenes, Cyclopropylidenes and Tropynes

This project by William Jones within the Organic Dynamics Program will investigate the chemistry and structure of small ring, organic compounds complexed to metals. The equilibrium between allene (two double bonds across three carbons) and zwitterionic forms (doubly charged) will be studied. This work will provide information about sigma and pi bond strengths. Small, strained rings complexed to transition metals show quite unusual chemical behavior. For instance, depending on substitution, a cyclopropane bonded to an electron deficient metal can either open to a pi-allyl complex, or undergo alpha-carbon elimination to give a carbene complex. Both of these reactions will be studied with an eye to determining the detailed mechanism of the former, the generality of the latter, and the factors that cause one to dominate over the other. Both cationic and neutral cyclopropylidene complexes will be prepared to determine the conditions under which they open to complexes of allenes. It is anticipated that neutral complexes may open slowly, and cyclopropylidenes complexed to neutral electron deficient metals may be quite stable due to cyclopropane's potential to behave as a four electron donor. Fe(II) complexes of properly substituted cyclobutanes undergo alpha-elimination of carbon to give cyclic carbene complexes. The generality of this reaction will be explored, and some of the chemistry of these unusual compounds will be studied with the intention of preparing iron containing naphthalenes and highly strained cationic carbyne complexes.